Experimentation with Routing Technology to be Used for Inter-Domain Routing in the Internet

9318902 Knopper This project is investigating and developing tools for management and distribution of inter-domain policy-based routing information for the Internet. The award provides for equipment and personnel for the routing experiments, including a subcontract to Cornell for GateD modifications and testing. Maximum duration of the award is 24 months.